NGS: Collaborative Research: A Component-based Software Environment for Simulation, Emulation, and Synthesis of Network Protocols in Next Generation Software

In this project, we propose to design, implement, and evaluate a component-based software environment for
simulating and emulating network protocols in a systematic manner, and for a wide variety of target network
architectures. We will also explore the use of the developed protocol components on a software-programmable
router platform. The software environment has been built upon a component-based software architecture, called
autonomous component architecture (ACA), that deploys a message-passing, independent execution model to
realize the notion of software IC. On top of ACA, a packet-based network modeling framework, called extensible
internetworking framework (EIF), has been laid to deﬁne generic network components that are general enough
to accommodate future technology advances. To demonstrate the use of ACA and EIF, we have implemented in
Java both ACA and EIF, and an (almost) complete suite of essential Internet protocols in the Internet best-eﬀort
service, integrated services, and diﬀerentiated services architectures. The resulting code, along with a scripting
framework, constitutes a network simulation environment called JavaSim.